Synthesis of Precise Unnatural Oligomers Using Well-Defined Synthetic or DNA Templates

9612172 Tour New routes are described for the facile construction of organic oligomers of precise molecular weight, constitution, and in some cases, even stereochemistry, using unnatural and natural (DNA) templates (parents) of specific length, constitution, and conformation. Taking advantage of precisely-defined synthetic templates that are rigid-rod- like, the rapid construction of oligomers of nearly the same length as the templates will be attempted. Unnatural monomers will be ionically- or hydrogen-bonded to the templates via non-covalent bonding moieties (NCBMs), then oligomerization will be induced chemically or photochemically to afford a supramolecular parent-daughter duplex. The polymerizations should be kinetically favored since the templated reaction is pseudo-solid state or pseudo- topochemical in its monomer-monomer orientations. Cleavage of the ionically- or H-bound parent-daughter duplex would afford a new synthetic daughter oligomer that retains the specific length information of the parent template, as well as, possibly, the stereochemical information such as the helical sense. Methods can be envisioned to re-use the parent template and the daughter(s) as new templates, thus making the entire process catalytic in template, and ultimately natural-like or polymerase chain reaction-like (PCR-like) in its productive capabilities. %%% These precise macromolecular systems are becoming important for electronics, photonics, molecular electronics, catalysis, separation science, nano-engineering, and nano- bioengineering. This project, if successful, could significantly simplify the preparation of precisely defined macromolecular architectures which are currently prepared only by laborious step-wise procedures or multiple analytical separations. ***